SBIR Phase II: A Direct Lithium-Ion Battery Recycling Process Yielding Battery-Grade Cathode Materials

The broader impact/commercial potential of this SBIR Phase II project is to significantly improve the economics of lithium-ion battery (LIB) recycling, while minimizing its environmental impact. Direct recycling uses less energy and generates less pollutive waste and fewer emissions than alternative recycling approaches, while simultaneously producing more valuable products. The proposed project will advance the development of a recycling technology that will lower LIB cost, reduce the reliance of LIB production on the mining of expensive virgin metals, create a local supply of LIB materials, and facilitate the adoption of clean energy products (e.g., electric vehicles, grid storage).

This SBIR Phase II project proposes to develop a cost-effective and scalable direct recycling process at a pilot-scale level. The proposed project will study LIB deactivation, component separation, purification, and regeneration processes that can be economically reproduced on a large scale. For example, a battery deactivation process that is quicker, safer, and cost-effective can be used in other waste management processes as well to discharge batteries. This project also will enable a better understanding of the key parameters of electrode extraction and purification processes able to preserve electrode chemistry and morphology. By focusing on the characterization of structure, morphology and electrochemical performance of the recycled materials, this project will lead to a more profound understanding of the effect of relithiation and heat treatment conditions on the quality of recycled cathode materials. Together, these studies will advance the knowledge and understanding of not only the process, chemistry, and mechanics behind the direct recycling process but also process optimization for a production-scale LIB recycling operation.